Cable Suspended Robots: Coordination, Control and Configuration Design

The project addresses an important, and somewhat neglected so far, topic in robotics - long reach robots. Cable-based robotic devices will be explored, covering questions of configuration design, trajectory planning, feedback control, fine motion control, and metrics for intelligent design. Experimental validation will be performed on an eight degrees-of-freedom cable robot built in the PI's laboratory. The PI has adequate access to outside resources critical for the project.